Interaction of Singularities in Fracture of Composite and Other Multiphase Materials

This research will establish the basic relationships arising in composite and other multiphase materials with sharp-corner inclusions in the temperature and stress fields. In the process of deformation and heating of multiphase materials, contacting bodies may not necessarily remain in full contact. They may locally separate or have imperfect contact as heat is conducted through the interface. Moreover, microcracks can emerge from a sharp corner of the inclusions.